Acquisition of a Transmission Electron Microscope and Elemental Microanalysis Science Building of the Univ. of South Florida.

PROGRAM: Academic Research Infrastructure Program Summary: The Academic Research Infrastructure (ARI) program supports 1) acquisition or development of major research instrumentation, and/or 2) repair, renovation, or in exceptional cases, replacement of obsolete science and engineering research facilities. This proposal from the University of South Florida (USF) requests funds to purchase an transmission electron microscope. The instrument will be operated as a shared-use facility to support research and teaching efforts of scientists in the St. Petersburg/Tampa area at USF and Eckerd College. The instrument will be housed in the new Marine Science Building at USF, and USF will provide a full-time technician to support the instrument. The University will also supply matching funds to purchase the instrument.